Conference on Visualization in Biomedical Computing; Atlanta, GA; May 1990

The overall objective of this conference is to bring together researchers from throughout the world working in various aspects of visualization in order to present and discuss approaches, tools, and techniques associated with visualization science in general, and in particular visualization in biomedical computing. Visualization in scientific and engineering research is rapidly emerging and increasingly important discipline aimed at developing tools and approaches to facilitate the interpretation of, and interaction with, large amounts of data, thereby allowing researchers to "see" and comprehend, in a new and deeper manner, the systems they are studying. With this in mind, the conference will help to further the field of visualization by exploring fundamental problems and issues in two conference tracks: one track will be applications-oriented, and the other track will focus on theoretical considerations. These tracks will be designed to contribute to a better understanding of the theoretical underpinnings of visualization and of the current tools and techniques associated with this discipline. //